Mathematical Methods for Nearfield Acoustical Holography

This project seeks to find a surface source of noise in an
aircraft from measurements of the acoustical pressure inside of
the cabin. These measurements are available from experiments.
The PIs will make use of integral equations of the potential
theory for the Helmholtz equation combined with contemporary
theory of inverse problems and recent advances in numerical
analysis including rapid computations of potential type integrals
and solution of linear algebraic systems of Toeplitz structure.
The problem of reducing noise in (midsize) aircraft is of extreme
importance and a part of it is to find a source of the noise.
This project assumes a strong interaction with aviation industry.
One outcome of this work will be the delivery of a computer code
to Cessna Aircraft Company. However, the results are expected to
be of value also for car industry and for the U.S.Navy. The
graduate students will be seriously involved into theoretical and
numerical on the project preparing for future work in industry.

This GOALI project is jointly supported by the MPS Office of
Multidisciplinary Activities (OMA) and the Division of
Mathematical Sciences (DMS).